Delta Excitations in Nuclei, US-Jordan Cooperative Research

Description: This project supports cooperation between Dr. James Vary of the Physics Department at Iowa state University and Dr. Mahmoud Hasan of the Physics Department at the Applied Science University in Amman, Jordan. The collaborative research will be in the area of theoretical nuclear physics dealing with Delta excitations in nuclei. Specifically, realistic nucleon-nucleon and nucleon-delta interactions will be used to map out the properties of nuclei under extreme conditions. For light nuclei, exact diagonalization with effective Hamiltonians will be performed. A Brueckner constrained mean field approach will be used to relate finite nuclear results to the nuclear equation of state. The effort encompasses a collaboration involving the two scientists, from Iowa State and from Jordan, and Dr. T.-S. H. Lee at Argonne National Laboratory (ANL) to solve for a set of Brueckner-Bethe-Brandow effective NN and ND interactions in a realistic single particle basis. Scope: This project will allow a cooperative activity between two investigators with complementary expertise. Dr. Vary is a member of the Nuclear Theory Group under the International Institute of Theoretical and applied Physics (IITAP) at Iowa State. The group has two faculty, two postdoctoral associates, and six graduate students. It collaborates with the ISU nuclear experimental group, has established strength in microscopic nuclear theory and aims to use those strength to address issues related to high energy reactions with nuclei. Vary has developed capability and techniques to evaluate effective nuclear Hamiltonians which will form central elements of this project. Dr. Hasan has developed a major constrained mean field dynamic capability and techniques for evaluating effective ND Hamiltonians. The IITAP, with sponsorship from UNESCO, will provide research support for the project and will assist the ASU in building its electronic networks, and in internet access. The project represents a good case of meeting INT objectives in promoting cooperation with benefits to both sides.